Tennessee Louis Stokes Alliance for Minority Participation (TLSAMP)

Tennessee Louis Stokes Alliance for Minority Participation (TLSAMP)

If America is to prosper in the new millennium, we must build a domestic science,
mathematics, engineering, and technology (SMET) workforce that uses the talent of all
segments of our population. America's prosperity is fueled by the nation's technical
enterprise. As evidenced by the tragic episode of September 11, our country must build
on the diversity within this country so that an increasingly large share of the work force
will consist of women and underrepresented minorities.

Many national programs have been identified to enhance the quantity and quality of
underrepresented minorities in science and engineering. This proposal describes a
program designed to improve the quantity and quality of underrepresented scientists and
engineers graduating each year with a bachelor's degree. The partners in the proposed
alliance are all from the state of Tennessee. The existing knowledge base relative to
minority participation in science and engineering will be the foundation of our efforts.
The goal is to build on this foundation and to expand the available options to enrich
programs at partner institutions and beyond.

Tennessee State University, LeMoyne-Owen College, Middle Tennessee State
University, University of Memphis, University of Tennessee at Knoxville, and Vanderbilt
University will partner to form the Tennessee Louis Stokes Alliance for Minority
Participation (TLSAMP). The ultimate success of this collaboration rests in the fact that
if there is any student's need, there is an institution within the alliance with the
characteristics, experience, and/or resources to meet the needs of the student. The
alliance can draw on the strengths and experiences of each of the individual members.
The goal of the TLSAMP is to increase the number of the underrepresented SMET
students by at least 75% at the end of the five-year period. The objectives to support the
goal of the alliance are: 1) to recruit underrepresented students to pursue science or
engineering as a career, 2) to improve the quality of the learning environment for
underrepresented science and engineering students at all schools, and 3) to ensure that a
larger number of undergraduate students are prepared to enter graduate programs.

The Alliance will emphasize collaborative learning approaches, mentoring activities via
faculty, staff, and upper level students, and hands-on research and internship experiences.
Using this approach, three project areas have been chosen as critical focal points for
achieving the qualitative and quantitative goals of the project. These project areas utilize
strategies with demonstrable effectiveness in the retention of underrepresented students in
science and engineering. All project areas will involve faculty, staff, or students during
the design phase as well as the continuous quality improvement phase.

In this project, assessment will be built into each project area as a result of the
formulation of specific, measurable quantitative and qualitative objectives. These
objectives will be reviewed and revised on an ongoing basis. An Advisory Committee
composed of the Vice Presidents and Deans from the six schools will oversee all aspects
of the grant project.